Improving Math and Science Instruction of Black Students in Junior High School

This two year project, sponsored by the University of Southern Illinois Edwardsville (SIUE), will provide content and pedagogy instruction to less well-qualified Junior High School teachers in minority schools in the East St. Louis Illinois region. Each summer 20 teachers in science and 20 teachers in mathematics will attend a six-week summer workshop and participate in an academic year follow-up. A coordinated workshop for 12 principals will also be included. The science teachers will study biology and physical science with an emphasis on using microcomputers to increase learning. The mathematics teachers will learn techniques of teaching problem solving and application of microcomputers in geometry and algebra. Both groups of teachers will learn techniques for instructional improvement particularly those which are effective with minority students. The follow-up activities include classroom visits by SIUE faculty and meeting with teachers in the summer once a month throughout the academic year. The matching funds from SIUE and the target schools is 31% of the NSF award